EAGER: Engineering Biological Electronic Coupling Pathways

This NSF award by the Biotechnology, Biochemical and Biomass Engineering program supports the development of novel theory, computational methods and experimental verification to enable the design of proteins capable of electron transfer. Electron transfer reactions are central to bioenergetic processes, such as hydrogen production, photosynthesis, and cellular respiration. Electron transfer in living organisms is analogous to an electrical current that powers a household appliance in that there must be a source of electrons (an outlet) and a pathway for the current to follow in order to supply energy to the electrical device so that it can function. The ability to understand and control the biological machinery ? i.e., the source and pathways ? involved in the process of electron-transfer will allow bioengineers to develop microscopic electronic devices that can be used to benefit society.

The PI will establish and interdisciplinary program that is complementary to this research initiative, while promoting diversity and increasing the involvement of underrepresented groups
in biological engineering and science .